Critical Phonema In Composit Media

A scientifically and technologically important class of
composite materials are those which exhibit a sharp transition in their
material and microstructural properties as some parameter is
varied near a critical point. One example with extremely rich
behavior is an electrorheological (ER) fluid, which is a
colloidal suspension of polarizable particles of high complex
dielectric constant, with typical sizes ranging from micron to
millimeter scales, in a viscous fluid of low complex dielectric
constant such as oil. The application of a strong electric field
to such a suspension produces within milliseconds a dramatic
transition from an oily slurry to a solid-like state with an
increase in the viscosity of the suspension by many orders of
magnitude. For non-conducting dielectric spheres, the transition
is characterized by the formation of chains which aggregate into
columns parallel to the field. For metal spheres, net-like
structures with fractal characteristics form. Recently the
investigator has introduced a way of applying the methods of
statistical mechanics to macroscopic problems in composite
media, for length scales much larger than the in the traditional
domain of statistical mechanics. In the research supported by this
award, the investigator will develop these methods further and begin
applying them to study the critical properties of ER fluids,
particularly those with larger spheres where thermal effects
are negligible, and classical application of statistical
mechanics yields little information.

Materials such as electrorheological (ER) fluids which exhibit
some type of marked transitional behavior appear throughout
science and engineering, and are important in many technological
applications. Other examples include sea ice, porous media
such as sandstones and soils, particulate composites used in
smart devices and in conducting films for electromagnetic
applications, and material failure due to fracture. The fluid/solid
transition in ER fluids is a particularly interesting example of the
type of critical behavior exhibited by these materials. The potential for rapid
electrical control of rheological properties has attracted
considerable attention to ER fluids, with applications including
clutches, pumps, brakes and shock absorbers. From a theoretical
standpoint, however, there remains much to be understood about
the material behavior and properties near the transition. In the
proposed work the investigator will develop mathematical methods
for understanding the transition in ER fluids, as well as other
composite materials exhibiting critical behavior.